Congruences between automorphic forms and lower bounds on Selmer group

The study of the absolute Galois group of a number field F or, from a
Tannakian point of view, of its abelian category of continuous finite
dimensional representations (let us say over a p-adic field) has long been
recognized as one of important challenge in pure mathematics. Among
those representations, the ones that are geometric, in the sense of Fontaine
and Mazur, are especially of arithmetic significance, and their category
should be equivalent to the (still conjectural) category of mixed motives
over F. It is important to understand the first Ext groups in that category
(higher Ext groups should be zero) and Bloch and Kato have made precise
conjectures relating the dimension of those groups to the order of
L-functions at integers values of the variable. The project aims to construct
as much extensions as possible in those Ext groups (hopefully as much as
predicted by the conjecture, in the case corresponding to the center of the
functional equation of the L-function) using p-adic deformations of
non-tempered automorphic forms. An important step should be the study of
the local geometry of the "moduli space of p-adic automorphic forms" called
Eigenvarieties around the non-tempered automorphic forms.

Many old problems in arithmetic, some of them going back as far as
Diophantes, as well as some new ones, fit well in the framework of Galois
theory: they often can be translated into questions about existence, or
non-existence, of certain Galois representations (that is representations of the
absolute Galois group G of the field Q of rational numbers, or of some open
subgroups of G) with prescribed properties. And then, sometimes, they can
be proven, as was Fermat's Last Theorem by Wiles. The study of Galois
representations splits up into two parts : finding irreducible Galois
representations, and then determining extensions between them. Even if the
first problem is far from being solved, precise conjectures about the second
one were made by Bloch and Kato. The projects aims to give partial answers
to those conjectures, by constructing some interesting extensions. The method
uses the theory of automorphic forms, which was once quite a different topic,
but which is now strongly tied to the theory of Galois representations by the
Langland's program. The idea is that one can obtain interesting extensions of
Galois representations by looking at (p-adic) deformations of some very
special automorphic forms, the so-called non tempered forms. The more
deformations there are, the more extensions one should be able to construct.
Those deformations are encoded in the geometry of a (p-adic) variety, known
as the Eigenvariety, and developing tools to study that geometry is an important
part in the project.